I-Corps: Interferometric Imaging for Multiplexed Molecular Kinetics

The broader impact/commercial potential of this I-Corps project is to explore translation of a sensor for better diagnostics and therapeutics. The proposed technology can be created at low cost, enabling an instrument that integrates parallel sensors for a high-throughput system.

This I-Corps project explores applications for the Interferometric Reflectance Imaging Sensor (IRIS), a label-free detection (LFD) system. The proposed system uses optical biosensors in multiplexed imaging detection of molecular binding kinetics on Si-based microfluidic chips as low-cost consumables. Hundreds of capture probes can be arrayed on the IRIS chip and tested against a target molecule in parallel. The proposed system addresses needs for multiplexed and robust small molecule affinity measurements, which can enable the discovery of new ligands for detection and monitoring of small molecules for compact sensors.